Aquisition of stable isotope ratio mass spectrometers

0079573
Ostrom

This award provides seventy-percent partial funding support for the acquisition of mass spectrometry instrumentation to be installed and operated in the Environmental Isotope Geochemistry Laboratory at the Michigan State University. The University is committed to providing the remaining funds necessary for the acquisition of the instruments. The mass spectrometers will be used in basic and applied research projects aimed at improved understanding of interactions between the biosphere, atmosphere, and hydrosphere. The instrumentation will also be employed in laboratory technique courses at Michigan State University.
***